Velocity-Pressure Correlations and Lewis Number Effects in Turbulent Premixed Flames

The objectives of this project are to address two key issues in the modeling of premixed turbulent reacting flows: (1) examine the effects of flames on turbulence, principally through the pressure-velocity gradient correlation, which will address a major weakness in current turbulence models of reacting flows; and (2) study effects of differential diffusion of mass and energy on combustion, which will address a significant aspect of combustion modeling that is not considered in present flamelet models. To meet these objectives, turbulent flame propagation will be studied using direct numerical simulations. These are large computer calculations in which no models are used. Thus, they can be used like laboratory experiments to study basic physical processes in turbulent flames. The approach proposed is to use DNS to examine the issues listed above and increase our understanding of the fundamental mechanisms and processes involved. This insight is then used to suggest improvements to existing models and develop new models. The models are tested using the data generated in the simulations. Combustion is a significant and widespread source of power in many important technological systems. Requirements for increased efficiency and reduced emissions are placing increased demands on these systems. To effectively meet these requirements will require accurate predictive computer modeling. These models must represent the complex processes of gas flow turbulence, combustion, and the interaction of the two. Current models in these areas are lacking in many respects and are limiting the widespread use of computer modeling as an engineering design tool.